CYBERCHASE

9909404
SHEPPARD

The Educational Broadcasting Corporation (WNET) is producing 13 half-hour animated television programs to engage youth aged 8-11 in the fun and challenge of mathematics. Cyberchase will encourage viewers to develop and sustain positive attitudes toward mathematics, help increase their mathematics knowledge and skills, and actively involve them in mathematical reasoning and problem solving. The premise of the series is that a dastardly fiend is on a mission to take over cyberspace. Three youngsters are summoned into the cyberworld to stop him. Their only weapon: BRAIN POWER! Repeatedly, the young heroes find themselves in danger and must use math and logic to escape.

In addition to the television series, Cyberchase materials and outreach will continue to involve children in mathematics. Outreach components include:

A web component that provides mathematical activities and content
100,000 free copies of a Cyberchase magazine
An insert in the 4th grade edition of Weekly Reader - reaching 30,000 teachers and 800,000 children.
Teachers guide to facilitate classroom use of the series
The incorporation of Cyberchase activities into the afterschool and weekend programs of Boys & Girls Clubs, the Urban League, and the AAAS Black Church Project

The PI and Co-Executive Producer for the project is Sandra Sheppard, WNET's Director of Educational Video. The Co-Content Directors are Cary Bolster, Director of PBS Mathline's K-12 projects, and Michael Templeton, former Content Director of "The Magic School Bus." The Co-Executive Producer will be Kristin Martin, formerly Executive Producer for "The Magic School Bus." Advisors to the project include Glenda Lappan, Frances Curcio, Joel Schneider, Solomon Garfunkel, Laura Jeffers, Jimmie Rios, Susan Markowitz, Virginia Thompson, Simon Graty, Cyrilla Hergenham, Kay Gilliland, and Deborah Anne Robertson.